Harnessing Chemical Transformations to Advance Isomer-Selective Mass Spectrometry Imaging

Investigators at Purdue University are developing transformative technology using mass spectrometry imaging to study the localization of biomolecules in tissues at cellular-scale detail. In complex biological systems, the exact structures of biomolecules determine their function, and molecules with the same composition but different structure (isomers) can have distinct roles. To enable spatial mapping of such isomers that cannot be distinguished by mass alone, new derivatization approaches are being designed and tested to increase structural specificity at each location on the sample. These strategies are used to create workflows for mapping hundreds of lipids and metabolites with high chemical specificity, providing unique tools for studying biochemical pathways. Broader impacts include open-source software and data resources, integration with undergraduate curricula, and strong partnerships with industry, national labs, and the National Science Foundation Industry-University Cooperative Research Centers Program Center for Bioanalytic Metrology, which accelerate translation and workforce development. This work advances biotechnology for applications from biology and development of new therapeutics to advanced manufacturing and agriculture, strengthening U.S. capabilities and a highly skilled biotechnology workforce.

This project addresses challenges in chemical specificity of mass spectrometry imaging (MSI). The research group will integrate fast, online chemical complexation and covalent derivatization with optimized data acquisition using nanospray desorption electrospray ionization MSI (nano DESI MSI). Nano DESI, an ambient ionization method, enables sensitive, quantitative imaging at cellular scale resolution. Yet the chemical complexity of biological samples, including isobaric and isomeric interferences, limits confident annotation, distorts spatial maps, and masks low abundance biomolecules. Overcoming these limits will enable isomer selective, high throughput imaging across diverse samples by combining online derivatization/complexation with gas phase separations and highly multiplexed acquisition. Collectively, this work will establish a broadly applicable imaging platform for isomer-selective spatial omics across diverse biological samples that should impact basic research, as well as clinical and industrial applications and will provide exceptional training opportunities in a rapidly expanding field.